Collaborative Research: Iodine-enhanced micro-CT Imaging: Repeated Measures Design to Improve Visualization of Vertebrate Soft-tissue Anatomy

The ability to rapidly visualize hard tissues (e.g., bone, dentine, enamel) in three dimensions has been one of the most important advancements for researchers, medical doctors, and scientific educators in the last half-century. However, comparable advancements in soft-tissue imaging have yet to be fully realized due to the inherently low X-ray absorption of non-mineralized tissues. The use of Lugol's iodine (I2KI) solution as a contrast agent for the rapid visualization of soft-tissue anatomy using X-ray CT and micro-CT (μCT) imaging is a potentially transformative new tool for the field of vertebrate morphology. The project goal is to create a generalized protocol for iodine-enhanced (i-e) μCT imaging that will allow any morphologist to create high-quality, 3-D images of soft tissues from nearly any species of vertebrate. The i-e μCT research also has the potential for broad-based educational applications through the development of 3-D, high-definition anatomical atlases. In addition to evolutionary and organismal biology curricula, such materials could readily augment anatomy and physiology coursework.

This project will encompass three phases of research. In Phase I, the researchers will test the effects of specimen preservation and staining. Next, a subset of specimens from Phase I will be used in Phase II to test the effects of various μCT scanning parameters. Finally, in Phase III we will test novel protocols for (a) removing iodine from previously stained specimens and (b) expanding the current size limits on staining and imaging of larger specimens. Taken together, this research aims to address the current gaps in our knowledge limiting the broad application of i-e μCT, while also examining potential new research directions that could further expand its utility for the biological sciences at large. Results from the studies will be disseminated through workshops, peer-reviewed publications, and presentations at scientific meetings.